Mathematical Sciences: Group Actions, Symplectic Geometry, and Singular Spaces

9404404 Guillemin The scope of research covers topics in symplectic geometry, Hamiltonian spaces and group actions. The scope of research also involves the running of a workshop in this area. ***